TEAMS Traveling Exhibit Collaborative

0000589
GOUDY

The Montshire Museum of Science, on behalf of the TEAMS Collaborative, will develop "TEAMS Traveling Exhibit Collaborative." Four charter members of the TEAMS collaborative, a partnership that includes the Monthshire Museum of Science, Norwich, VT; the Catawba Science Center, Hickory, NC; the ScienCenter, Ithaca, NY; and the Discovery Center Museum, Rockford, IL, request funding to expand the collaborative by incorporating three new museum partners. They will develop, evaluate, and produce two copies each of four 1500-square foot traveling exhibitions. Each TEAMS exhibition will be accompanied by maintenance manuals, teacher's guides, and program materials for community science events. Three charter museums will mentor the three new museum members, which include the Health Adventure in Asheville, NC; the Rochester Museum and Science Center in Rochester, NY; and the Family Museum of Arts and Science in Bettendorf, IA. The four new exhibit topics being proposed by the collaborative are Sound Slices, The Body as a Machine, The Physics of Motion, and The Science of Sports.